Project "OPEN ACCESS"

9355680 Berger This is a three-year project, funded at $767,024, is designed to provide teacher enhancement and leadership skills for 30 middle school and 30 high school mathematics teachers in using NSF- supported standards-based mathematics materials in Minneapolis urban classrooms and in neighboring districts. The project is housed at the University of Minnesota-Twin Cities, with a subcontract in range of innovative materials with specific instruction preparation provided as the district completes instructional materials selection. The high school component will focus on the Interactive Mathematics Project, and the middle school component will participate with materials form several projects. Each year, a three-week summer program on content, instructional techniques, and classroom assessment. The summer program includes participant work with students two mornings each week. Academic year follow-up includes focused project staff visitations and support along with 6.5 days of sessions, organized in time blocks appropriate to teacher needs, each year. Cost sharing commitments of $249,359 include support form district, grantee institution, and other federal programs.